Mathematical Sciences: Valley Geometry Seminar

9401642 Cox The Valley Geometry Seminar runs series of lectures and workshops in diverse areas of geometry and its applications. Such areas include differential and algebraic geometry, number theory and mathematical physics. Seminars are conducted by invited speakers who are leading authorites in these fields and are aimed towards fellow-researchers and graduate students. ***